NSF Young Investigator Award

The objective of the proposed research is to experimentally observe the inhomogeneous flow processes operative during superplastic deformation and to study their relationship to the macroscopic constitutive response through finite element modeling of the microstructure. Emphasis will be placed on experimentally isolating the operative dislocation and diffusional flow processes and the detecting the inhomogeneity of deformation within single grains as well as within larger collections of grains.